Introducing Charge Coupled Device Experiments in Undergraduate Labs

Charge coupled devices (CCDs) are two-dimensional optical detectors that are revolutionizing modern instrumentation. These computer-intensive detectors have excellent sensitivity and can collect an entire image within a fraction of a second. The images provide immediate information that can be stored as computer files to allow subsequent analysis of a series of images. Image analysis procedures vary, but basic detector usage is the same when used for medical instruments or on-line monitoring of product quality control. This wide diversity in application means that the ability to understand and use data from instruments using CCDs is rapidly becoming an essential skill for all science students. Unfortunately, teaching lab experiments using CCDs are nearly non-existent. This project uses a junior-senior level optics and new projects lab to develop a series of CCD experiments. Optical two-dimensional diffraction patterns are providing suitable standards to test the performance of CCDs and non-trivial, interesting experiments.